University of The Sacred Heart Young Scholars Program

9553497 9553497 Acevedo The University of the Sacred Heart will initiate a five-week, summer residential, Young Scholars project for 15 students entering grades 9-12. The project focus is interdisciplinary and will stress the acquisition of research skills and awareness of environmental issues. Participants are exposed to a broad range of scientific issues through conferences, lectures and interacting with practicing scientists in different scientific fields. Students work on and complete research projects in the summer and academic year follow-up portion of the project. Ethics and philosophy of science activities along with career explorations complete the program.